Research Experiences for Undergraduates at the Rice Quantum Institute

This action will establish a Research Experiences for Undergraduates (REU) site at the Rice Quantum Institute (RQI) of Rice University. The main objectives are to provide eight (8) undergraduate students with an opportunity to work during the summer in an intense, interdisciplinary, collaborative research environment and to involve them in a program of discussions and interactions with faculty and graduate students that will show them both the relationships among atomic, molecular, optical, and surface sciences and the technological ramifications of fundamental research in this area. Further objectives are to give these undergraduates an understanding of how atomic, molecular, optical, and surface science relates to many important technologies and to convey to them a sense of the real intellectual excitement of this research and the future for its technological applications. Each undergraduate will join a research group, undertake a project that can be completed within the summer, attend special seminars and group discussions for REU participants, make a formal report of the project, and participate in the RQI Research Colloquium at summer's end. The 32 faculty fellows of RQI and their groups have considerable undergraduate involvement in research now; however, this program will provide additional research opportunities, will create a coherent educational structure for these students during the summer, and will allow for tracking the educational progress and careers of all undergraduates who work with RQI groups.